Neural Development of Social Communication

Vasopressin is a neuropeptide that functions as a chemical messenger in the brain. It has been shown to be involved in regulating a number of behaviors, including aggression, reproduction, communication and learning and memory. Dr. Ferris has focused his efforts on the relationship between vasopressin and communicative behaviors. He has identified the neuroanatomical sites where vasopressin acts to mediate the behavior. Thus, Dr. Ferris has developed a excellent model for studying the neural circuitry of a defined behavior. Recognizing that this neuropeptide system goes through progressive changes during development, Dr. Ferris will now correlate the ontogeny of vasopressin cell bodies and vasopressin receptors with the ontogeny of the communicative and aggressive behaviors. In addition, he will examine the interaction between glucocorticoids, a family of steroid hormones secreted by the adrenal under stressful conditions, and the vasopressin system in the brain. These studies will determine whether stress during early life can have permanent effects on the brain which can alter behavior in adulthood.